Turtle Mountain Native Ways of Knowing Science Teacher Training Project

The Native Ways of Knowing Science Teacher Training Project will
establish a fully accredited baccalaureate degree program in secondary science
teacher education at Turtle Mountain Community College. This program will be
designed to train science teachers that will serve reservation and near
reservation schools with significant percentages of American Indian students.
The project has a number of elements. These include a standards based
component that will prepare students for certification in North Dakota and to meet
national standards; the development and implementation of Native Ways of
Knowing, place based, and experiential curriculum strategies; recruitment into
the program; a strong educational technology component; a job placement
component; and a distance learning component.